Continuum Mechanics of Cellular Indentation Measurements

The overall goal of the project is to develop a quantitative interpretation of a new method for measuring deformability of cells in culture. The method is based on a "cell poker", which measures the resistance of a cell to indentation by a small glass probe. Initial work will involve theoretical studies of small indentations of viscoelastic flat layers and spheres. This treatment will be generalized to include a surface membrane and will be extended to large-deformation viscoelastic behavior and to the analysis of heterogeneous and anisotropic objects which model cell structure. The theoretical work will be validated with experimental measurements on layer and spherical globules composed of a viscoelastic fluid bounded by a surface tension "membrane", and spheres composed of an elastic crosslinked matrix. Similar measurements will be carried out on actin gels. A new cell poker has been devised that permits fluorescence and optical microscopic observations simultaneous with indentation measurements to observe strain patterns, deformed boundaries, and to select specifically labeled cells for measurement. Finally, these quantitative methods will be applied to measurements on cytoplasts, i.e. cells from which the nucleus has been extruded, and to isolated nuclei to determine separately their contribution to cellular mechanical properties. These measurements of cellular deformability will allow characterization of the cytoskeleton and how it influences the shape of a cell and its cytoplasmic consistency. ***